REU: Research Experiences for Undergraduates in Coastal andNearshore Marine Systems of the Northeastern Gulf of Mexico

This proposal requests funding to initiate a fall term REU site in the various disciplines of coastal marine sciences at the Dauphin Island Sea Lab, Alabama. Seven undergraduates with career interests in coastal marine sciences are to be recruited each year to conduct research at the Dauphin Island Sea Lab. Each student is paired with a research scientist or faculty advisor, chosen to reflect the student's interests and background. The program cmnsists of a variety of scientific lectures, discussion groups, and a cruise with the intention of providing students a broad research experience.